Structure and Electromagnetic Moments of Exotic Nuclei

The proposed activities are designed to have as large as possible an impact on the education and training of graduate and undergraduate students and postdoctoral associates. The project will also serve to enhance the diversity of the nuclear science workforce by including early career scientists who are women or come from other under-represented backgrounds. The participation of these early career scholars in the forefront research would prepare them for careers in higher education and basic and applied research, in national laboratories and industry.